Solid-Phase Synthesis Utilizing a Resin-Bound Chiral Auxiliary: Applications to Enantioselective Aldol and Diels-Alder Reactions

The focus of this research is the preparation of chiral oxazolidinone auxiliaries suitable for attachment to polymer supports. These systems will then be used to induce chiral induction in aldol and Diels-Alder reactions. The ease of recycling the auxiliaries will offer advantages over current methodology and the potential for synthesizing small molecule libraries will be exploited. The research will be carried out with the help of undergraduate participants. With this Research in Undergraduate Institutions award, the Organic and Macromolecular Chemistry Program is supporting the research and educational activities of Dr. Brian J. McNelis of the Department of Chemistry at Santa Clara University. Professor McNelis, with the help of undergraduate coworkers, will focus his work on developing new methods for solid-phase synthesis. The methodology has the potential for application in the pharmaceutical industry for the preparation of compounds with important biological properties.